Colorado College Improved NSFNET Connection

This award partially funds installation of a microwave system to implement a 10 megabit transmission link to the Unversity of Colorado at Colorado Springs (UC-CS), the site of its gateway to NSFNET. This will replace an existing 9.6 kbs modem link to UC-CS.***